Equipment Acquisition for Control of Fuel Cell Power Systems

Through this project, the National Science Foundation provides partial funding for the acquisition of instrumentation and equipment for the development of a Fuel Cell Laboratory in the University of Michigan for Control and Diagnostic Systems studies. The experimental set-up allows the implementation of multivariable controllers, fault detection, and diagnostic algorithms for the regulation of reactant flow and pressure, stack temperature, and membrane humidity. It is anticipated that the development and testing of real-time control and diagnostic systems will accelerate the use of Fuel Cells by enhancing their safety, increasing their efficiency, and ensuring their robustness in real world applications.

The equipment acquisition places the University of Michigan in a prominent position in FC research. The university's strategic location and collaborations with the automotive industry generates synergistic mechanisms for research and for training the future technical and corporate leaders in the field.